Development of a Low Energy Threshold Biosynthetic Radiation Detector

9900799
Puff
Dr. Puff is developing a biosynthetic Radiation Detector capable of measuring low level radiation. By depositing a double single-stranded DNA on small polystyrene beads, the surface area of such detector is greatly increased. The broken DNA molecules can be easily collected with a filtering system.